Structure-Function Studies of Lipid Binding Proteins from Intestine

Unlike other tissues, the small intestine abundantly expresses more than one (actually four) homologous lipid binding protein (LBP) in the same cell type. These proteins exhibit differences in lipid- binding specificities and stoichiometries, regional expression, and developmental regulation. Because of these differences, the LBP homologues represent excellent model systems for investigating structural differentiation within a gene family of lipid-transport proteins. The overall objective of the proposed research is to determine and compare the structural and dynamic properties of three LBPs in solution using NMR and recombinant DNA techniques. The specific aims are: (i) to purify large quantities of native and isotope-enriched proteins from bacteria using suitably constructed prokaryotic expression vectors, (ii) to establish sequence-specific proton, carbon-13, and nitrogen-15 resonance assignments for each protein using isotope-directed multidimensional NMR methods, and (iii) to use the resulting assignments. for each protein to define and compare their structures, dynamics and detailed interactions with bound lipids. A detailed comparison of the solution structures and lipid interactions with these transport proteins will yield fundamental information regarding the molecular determinants of ligand specificity, stoichiometry, and affinity and provide insights into their individual functions. %%% This research involves the study and comparison of three similar but distinct proteins found in the lining of the small intestine. These three proteins are thought to play a role the absorption and processing of fatty substances absorbed from the diet. They are not presently known to be linked to any disease state involving cholesterol or fats. However, the individual functions of these proteins are not well understood. The goal of this research is to develop a complete picture of the molecular architecture of these three proteins so that their individual molecular properties and roles in fat metabolism and transport can be understood. To do this, we are taking advantage of state-of-the art magnetic resonance methods (NMR), combined with recombinant DNA procedures. It is likely that the information obtained will provide insights into how these and other similar proteins achieve specificity as carriers of fatty substances.